Thermal Sensitivity of Antarctic Embryos and Larvae: Effects of Temperature on Metabolism, Developmental Rate, and the Metabolic Cost of Development

Cold-blooded animals in the Antarctic ocean have survived in near-constant, extreme cold conditions for millions of years and are very sensitive to even small changes in water temperature. However, the consequences of this extreme thermal sensitivity for the energetics, development, and survival of developing embryos is not well understood. This award will investigate the effect of temperature on the metabolism, growth rate, developmental rate, and developmental energetics of embryos and larvae of Antarctic marine ectotherms. The project will also measure annual variation in temperature and oxygen at different sites in McMurdo Sound, and compare embryonic and larval metabolism in winter and summer to determine the extent to which these life stages can acclimate to seasonal shifts. This research will provide insight into the ability of polar marine animals and ecosystems to withstand warming polar ocean conditions.

Antarctic marine ectotherms exhibit universally slow growth, low metabolic rates, and extended development, yet many of their rate processes related to physiology and metabolism are highly thermally sensitive. This suggests that small changes in temperature may result in dramatic changes to energy metabolism, growth, and the rate and duration of development. This project will measure the effects of temperature on metabolism, developmental rate, and the energetic cost of development of four common and ecologically important species of benthic Antarctic marine invertebrates. These effects will be measured over the functional ranges of the organisms and in the context of environmentally relevant seasonal shifts in temperature around McMurdo Sound. Recent data show that seasonal warming of ~1 deg C near McMurdo Station is accompanied by long-lasting hyperoxic events that impact the benthos in the nearshore boundary layer. This research will provide a more comprehensive understanding of both annual variation in environmental oxygen and temperature across the Sound, and whether this variation drives changes in developmental rate and energetics that are consistent with physiological acclimatization. These data will provide key information about potential impacts of warming Antarctic ectotherms. In addition, this project will support undergraduate and graduate research and partner with large-enrollment undergraduate courses and REU programs at an ANNH and AANAPISI Title III minority-serving institution.